A High-Resolution Bathymetric and Geophysical Investigation of the Southwest Indian Ridge: Spatial Characterization of an Ultra-Slow Spreading Center

9528885 Grindlay A high-resolution bathymetric and geophysical investigation of a 2,000 km-long portion of the ultra-slow spreading Southwest Indian Ridge will be conducted. The investigation is designed to establish the characteristic morphologic, gravimetric and magnetic segmentation of the straight portion of the ridge from 15 east to 25 east and then study how this character changes in the fracture zone complex between 25 east and 35 east. ***